Jackling Institute/Jackling-2

The University of Missouri @ Rolla will initiate a four-week, residential Young Scholars project in Engineering and Earth Science for 20 students entering grade 12. Approximately 120 high school seniors will attend a one-week program (40 students/week for three consecutive weeks in June) designed to present science and engineering careers relating to minerals, materials, energy and the environment. Twenty participants from this group will be selected to return for an additional three-week research experience; the particular discipline of the research will be selected to match student interest.